Laboratory Development in Microwave Circuit Design

New techniques and new applications continue to expand the field of microwave engineering. At the same time, the number of engineering students trained in this important field continues to be inadequate. The design and testing of microwave circuits is now based on CAD packages and sophisticated test equipment that was not available a few years ago. Undergraduate students presently receive a strong theoretical background in microwaves including CAD experience, but modern microwave test equipment is lacking. The test equipment is needed to introduce a series of microwave-circuit design projects in two existing senior laboratory courses. Two state-of-the-art network analyzer systems together with some additional software are being acquired. With these new resources, senior electrical engineering majors will carry out complete projects, encompassing all phases of design, construction, and testing. The projects, while having practical significance, will also stress the underlying basic electromagnetic theory.